Cross-National Differences in Probability Judgment

There are large, reliable differences in probability judgments made by individuals in Western countries like the United States and those in many Asian countries. Most differences pertain to calibration. (Good calibration exists, for example, if about 40% of the events that are assigned probability judgments of 40% actually happen.) However, differences in discrimination have been documented, too. (Discrimination is the ability of judgments to sharply distinguish instances when a target event will occur from those when it will not.) Several potential explanations of the observed differences will be tested with subjects in the United States and several Asian locations. The major research hypothesis is that the variations rest on cognitive processing habits rooted in different cultural traditions, including ones pertaining to social interactions. Another proposition is that the differences are an artifact of previous researchers' sampling of judgment tasks. According to a third explanation, the distinctions are specific to particular judgment topics and to student subjects. A final explanation says that the differences reflect cross-national variations in the relative importance of various aspects of judgment quality. This research promises insights into universal judgment mechanisms as well as ones peculiar to given cultures. It should also provide guidance about problems in cross-national communication and collaboration and for improving decision technologies and their transferability.